CAREER: Strings on the Horizon: Exploring the Interface of High Energy Physics and Cosmology

New data from cosmology have determined many parameters of our uni- verse to
unprecedented accuracy. Among the many significant results is the determination that
much of the energy in the universe is dark and of a form consistent with a positive
cosmological constant. Understanding such a result appears to require a theory of
quantum gravity. The best candidate for such a theory, string theory, contains a
mechanism for producing dark energy and understanding its approximate value, but it is
crucial that this model be falsifiable and predictive. The PI proposes to undertake a
broad program of research in high energy theory, focusing on the aspects of string
theory most relevant to cosmology, with the ultimate goal of uncovering stringy effects
which can be observed. He will continue his work studying the effects of high-scale
physics and string theory on large-scale cosmological phenomena such as the Cosmic
Microwave Background and the curvature of the universe. He will research the physics
of black hole and cosmological horizons and singularities using string theory dualities
and other methods. As a final component of the program he will continue and extend his
recent work in particle physics in anticipation of the arrival of new data. The Broader
Impact of the proposal will be that the PI will develop a pilot program at NYU to help
promote the success of undergraduates belonging to groups traditionally
underrepresented in physics and the physical sciences. The program will attempt to
overcome the isolation such students often experience by facilitating the formation of a
peer group and by providing additional support where necessary. In addition, the PI will
lecture at the Physics Club of New York, a public forum consisting of area high school
teachers and members of the public, and will participate in school tours and interactions
with two particular local high schools.